Studies of the Solar Wind Near the Sun

The solar wind plasma within 20 Ro will be studied using a variety of radio propagation techniques. This will permit estimation of the spatial spectrum of density fluctuations, the mean flow velocity, its random component and the orientation of the magnetic field. These measurements will be compared with optical data, such as white light coronograph, magnetograph, and emission line observations. The basic objectives will be to learn more about the mechanism of coronal heating and the flow of energy near the critical point, and to study the coronal origin of large scale structures such as fast streams. Within 20 Ro earlier observations have shown a rapid increase in random velocity, excess power in density fluctuations on scales of 10 to 300 km, and density fluctuations which become highly isotropic. This study will measure the acceleration of the particles through the sonic point using multiple antenna intensity scintillations. The spatial anisotropy as a function of spatial scale will be measured by comparing angular scattering (measured at the VLA) with phase scintillation (measured with the VLBA). The intensity scintillations will be analyzed to learn the origin of the random velocity component. Finally, observations within 20 Ro can be compared with surface measurements more accurately than those further from the sun because the mapping distance is small and stream-stream interactions are much less important. A study will be made to determine the difference in the flow field between regions of different magnetic geometry.